Female-Inclusive Math and Science Instruction: Interactive Multimedia Courseware Based on Verbal Modalities and a Non-Aggressive Atmosphere

This Small Business Innovation Research (SBIR) Phase I project has as its objective the development of interactive multimedia science and mathematics courseware for grades K-3 using storytelling, sing-alongs, and nonaggressive games. An important focus of these methods of instruction is on introducing science and mathematics in an encouraging way to primary-level female students. By providing an early intervention to counteract the trend among female students, who begin to lose interest at this age, the proposal addresses a major problem in US education today: alienation of females from the math/science enterprise.